Dissertation Research: The Northeast Mesoamerican Frontier

Under the direction of Dr. Dan Healan, MS Elizabeth Mozzillo will collect data for her doctoral dissertation. She will analyze a range of archaeological materials which she has collected from the prehistoric site of Cerro de las Ventantas (CV) which is located in northern Mexico. The entire mesa top of CV is covered by what probably were civic-ceremonial buildings including impressive platform constructions, a number of plazas, two small pyramids and a circular structure. The sole prehistoric access trail to the mesatop is lined with the remains of a stone stairway which passes near a rockshelter filled with the cliff dwellings from which the promontory and archaeological zone take their names. To date MS Mozzillo and her colleagues have surveyed and mapped the region. They have collected surface materials and conducted controlled stratigraphic excavations. The goal of the current project is to analyze the materials collected. Together with assistants MS Mozzillo will construct a ceramic tyopology which will allow sites to be placed relative to each other in time. Radiocarbon determinations will be used to anchor the sequence with absolute dates. Other classes of materials recovered - these include lithic faunal and human skeletal remains - will also be examined. While this region of northern Mexico contains many archaeological sites, it has received little archaeological scrutiny. The reason for this is its intermediate position between the "great" sites and cultures of the Valley of Mexico to the South and the impressive remains located in the U.S. Southwest to the North. The region appears to have served as a "frontier zone." Archaeologists have speculated for many years about the rise of complex prehistoric societies in the U.S. Southwest. Some believe that this process took place essentially independently of developments in central Mexico while others see strong linkages. To solve this question it is necessary to study sites which lie between these two areas and MS. Mozzillo's work will contribute to this goal. This research is important for several reasons. It will provide data of interest to many archaeologists. It will increase our understanding of U.S. prehistory and shed light on the rise of complex societies. It will also assist in the training of an extremely promising scientist.